Mathematical Sciences Research Equipment

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences. It is for the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required by several research projects, and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers, and with substantial cost-sharing from the institution submitting the proposal. This is an instance of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The equipment in this project will be used in the following research projects: Floer homology and other invariants of low dimensional topology; Low degree cohomlogy and invariant forms for finite simple groups; Galerkin approximations of the spectrum of elliptic operators; Linkage and residual intersection in local rings; and Numerical methods for some stochastic and determining systems.